Instantons, Knots and Surgery

Understanding the shape of spaces is a central goal of topology, a field of mathematics that studies geometric objects up to continuous deformation. Low-dimensional topology focuses on spaces of dimension three and four, where ideas from geometry, analysis, algebra, and mathematical physics interact in powerful ways to study how such spaces can be recognized, distinguished, and built; despite major successes of existing tools, many fundamental questions remain open. One of the main approaches in topology is to translate geometric questions into algebraic ones through homology theories, which provide tools for detecting and organizing hidden structure in spaces. These ideas have had significant influence on mathematics, physics, and data analysis. In particular, persistence modules provide a way to track how such structure changes across parameters. In this project, the PI proposes to develop new homological and persistence-based tools arising from gauge theory, a set of mathematical ideas originating in physics, and to apply them to fundamental problems in low-dimensional topology, including questions about knots and the three-dimensional spaces associated with them. The project will promote the progress of science, strengthen connections among pure mathematics, physics, and data analysis, and support the mathematical community through research dissemination, student training, and outreach activities, including a local elementary-school math club and a seminar on Mathematics and AI.

Introduced by Andreas Floer in the late 1980s as a gauge-theoretic bridge between three- and four-dimensional topology, instanton Floer theory assigns algebraic invariants to three-dimensional spaces by studying equations arising from Yang--Mills theory. In recent work, the PI further developed instanton Floer theory and applied these refinements to the study of various problems in low dimensional topology. Building on the success of these tools, the PI now plans to use them, including a persistence-module theory associated with knots and three-manifolds, to address several Dehn surgery problems in low-dimensional topology including the Cosmetic surgery conjecture and the knot complement problem for null-homotopic knots. To achieve this goal, part of the PI’s program involves developing new tools in instanton theory. This includes studying refinements of instanton Floer homology using sheaf theoretical methods and analyzing their behavior undertaking regular covers. Applications of instanton homology have predominantly been limited to the case that the structure group is U(2). The PI will also investigate applications of instanton homology with other choices of gauge group in low dimensional topology. In particular, he intends to use U(N) instanton homology to resolve a conjecture about the unitary representation of knot groups, which generalizes the Smith Conjecture. The recent work by the PI and his collaborators on U(3) instanton homology shows that this approach is a viable strategy. The PI also plans to study invariants of knots and graphs in 3-manifolds that are motivated by his work on U(3) instanton homology.